The Diffusion of New Technologies in the U.S. Factory Made Clothing Industry

Textile and garment manufacturing have historically been one of the most important industries in the United States. Even today, major trade disputes center upon efforts to protect our domestic textile and garment manufacturers from foreign competition. Within women's history, garment manufacturing has been especially important since, next to domestic service, it was the principal employer of women in the 19th century. Yet we know very little about garment workers or the development and diffusion of new garment making technologies--especially in comparison to textile workers and the textile technology. How did new technologies change this industry? How did it make possible the move from a cottage industry to a factory industry? How did the new technologies affect the introduction of new product lines? In order to begin to examine these and other questions concerning this important industry, Dr. Farrell-Beck has three aims under this research grant: to document the use of selected sewing machines and attachments in manufactured U. S. clothing in the second half of the 19th century; to determine the time lag between patenting of machines and attachments and their application to factory production of clothing; and to learn how construction of factory made clothing changed between 1850 and 1899. The project is designed to bridge the gap between research on sewing machines and studies of 19th century clothing construction by analyzing garments as machine products. This research will extend knowledge of 19th century industries, complement the literature on the manufacture of yarn and fabric in the United States, and reveal differences in manufacturing technology between clothing and other goods. In order to carry out this research, Dr. Farrell-Beck will examine selected U. S. patents for sewing machines and attachments, then examine all aspects of the construction of 150 factory made garments for men, women and children in the period before 1900. She will carry out this research in three large museum collections in Minnesota, Michigan, and New York. She will analyze results in order to determine what trends are apparent in the diffusion of technologies and techniques in this important industry.